SBIR Phase II: Zulip threaded group chat

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) Phase II project will result from group chat technology that enables knowledge workers to collaborate more effectively than ever before. It is the first tool built that empowers users to efficiently carry out both real-time and asynchronous conversations in the same system, with each user reading only those conversations that are important to him or her. In particular, the technology empowers teams to make decisions in virtual meetings that take place asynchronously over periods of hours or days. This is in contrast with existing group chat technology, where conversations usually end as soon as someone starts talking about something else. This ability to conduct long running, virtual meetings is invaluable for large teams that need to coordinate work across different locations and time zones. Large, distributed teams are fast becoming the norm for how organizations operate, as instant communication and globalization make such teams the workforce of the future. Coordinating the efforts of such teams is a huge pain point for companies, and this technology is a leap in the state of the art in this space.

This Small Business Innovation Research (SBIR) Phase II project has three major research objectives: scaling the technology to teams of 10,000+ people; faithfully translating the user experience to mobile devices; and developing techniques for serving the needs of diverse deployments large and small. For scalability, one major area is "presence", telling each user who else is currently online. Presence data naturally grows with the number of pairs of users, therefore much faster than the number of users, and the company will need to develop algorithms to focus presence on significant connections between users. Among the unique challenges on mobile, the often-limited Internet connectivity demands algorithms that remember data previously fetched from the server to avoid asking for it again, carefully balanced with getting needed updates to never show out-of-date information to the user; the immediacy required for a great chat experience makes both horns of this dilemma especially sharp. Serving diverse deployments demands techniques for making software updates routine and seamless, a practice recently popularized in browsers and mobile apps but rarely accomplished to date in distributing server applications such as that described here.